Experimental Studies of the Higgs Mechanism in the Standard Model and Beyond

This award provides funding for research using data recorded by the ATLAS detector at the CERN Large Hadron Collider. The analyses carried out will advance our understanding of the Universe at the highest energies, and therefore shortest distances, ever explored in a laboratory setting. We will measure production and decay properties of the Higgs Boson which, according to our best theoretical models, is responsible for all mass in the Universe and which plays a crucial role in the ultimate stability of the universe. We will also use the data to search for evidence of new physics associated with Higgs boson reactions which is not currently included in our accepted theories.

This will be performed using LHC Run 3 data in final states associated with the Standard Model reactions pp (→ X) → HH/HY → bbττ and pp → H → μμ. We carry out searches for the reaction pp → H → aa → bbμμ, pp → H → aZ → bbμμ and pp → HH → bbμμ. We will also use the last of these to measure vector boson scattering processes associated with Higgs interactions which are required to establish unitarity in the standard model. The group is also actively engaged in physics-object performance development and calibration and participates in detector operations during data taking periods and in upgrades for high luminosity for the tracking system and liquid Argon calorimeter system.